Compositional Techniques for Verification and Performance Analysis of Reactive Probabilistic Systems

CCR-9988155
Stark, Eugene W.
Smolka, Scott A.
State University of New York at Stony Brook
"Compositional Techniques for Verification and Performance Analysis
of Reactive, Probabilistic Systems"

The research proposed here has as its objectives: (1) to develop
significantly improved techniques for the formal specification,
verification, and performance analysis of systems that exhibit
concurrent, reactive, probabilistic, and real-time behavior; (2) to
construct implementations of these techniques in the form of efficient
computer-aided design tools; and (3) to assess these tools and
techniques and guide their further development by applying them to
problems drawn from actual real-world engineering practice. In this
research, attention will be focused primarily on finite-state system
models. A key characteristic of the approach is compositionality,
which permits a large system to be described as the composition of a
collection of simpler components and to be analyzed in a
component-by-component fashion. This research will build on previous
work of the PIs, in which they developed a model, called
"probabilistic I/O automata" (PIOA), for the compositional
specification of reactive, probabilistic systems, together with
compositional performance analysis algorithms for this model. The
proposed project would advance the state of the art in the area of
formal specification and verification techniques for finite state
systems, which holds promise for enabling more efficient production of
more reliable software systems.